RUI: Research in Hadron Spectroscopy

9600408 Dowd This award will provide phase-out funds so that the participation of this group in exotic quark searches at the Brookhaven Multiparticle Spectrometer can occur in an orderly fashion. Support is provided for a research associate for 2 months, and for completion of work by 1 graduate and 2 undergraduate students. ***